Modeling Human-Body Soft Tissues for Surgical Applications

Abstract

IIS-9907060
Latombe, Jean-Claude
Stanford University
$122,673 - 12 mos.

Modeling Human-Body Soft Tissues for Surgical Applications

This is the first year funding of a three year continuing award. The goal of this research is to develop a general-purpose computational scheme for representing the geometry and physics of human-body soft-tissue structures and simulating their displacements
and deformations in real-time when external forces are applied by surgical instruments. The ability to realistically model soft tissues on a computer has the potential to radically change the ways surgery is currently taught and practiced. Virtual environments simulating deformable tissues will allow medical students to extensively practice delicate operations and confirmed surgeons to re-train themselves and maintain their skills for infrequent operations. Soft-tissue simulations will become essential to plan and rehearse surgical operations. The on-line availability of the models will make it possible to give intra-operative assistance to the surgeons. It will enable the introduction of roboticized instruments that will perform operations, either automatically or in interaction with surgeons. Research on soft-tissue modeling will directly benefit domains such as robotics, where the modeling of environments containing deformable objects is increasingly important; computer vision, where the task of tracking objects undergoing continuous deformations is central to understanding image sequences; and computer graphics, especially for the animation of virtual characters.

Previous research on soft-tissue modeling provides foundations on which the proposed research is based. In particular, as several researchers have suggested before, tissue structures will be modeled by meshes of point masses connected by elastic links, the so-called mass-spring elastic meshes. The research program includes both the theoretical development of a computational scheme based on the elastic mesh concept and the implementation/experimentation/evaluation of this scheme within a state-of-the-art virtual reality environment. The experiments will be conducted in the context of two applications: micro-anastomosis (the suturing of small blood vessels) and craniofacial surgery. This experimental effort will be critical to the validation of the results.

The unique features that this research expects to achieve are the following: - Modeling of complex tissue structures. Most existing models can only represent a tissue with uniform and isotropic elastic properties. Techniques will be developed to specifically model multiple adjacent soft tissues and their attachment to bones. - Realistic modeling of the mechanical response of individual tissues. To simplify computations a number of models assume linear elastic models. But human-body tissues are nonlinear and exhibit some
hysteresis. These properties will be captured in the new modeling scheme. - Modeling changes in tissue topology. External forces may cause topological changes in tissue structures, such as tissue cutting or tearing and formation of new contacts. A significant portion of the effort will be directed toward the effective modeling of such changes.
- Dynamic simulation. A simulator may only compute static equilibrium states of a tissue. Instead, by taking inertia and viscosity into account, it may compute the successive shapes of the tissue as it deforms toward equilibrium. The research will focus on
the second type of simulation. - Automatic construction of tissue models. Techniques will be developed to automatically generate complex elastic meshes and adjust their mechanical parameters from various imaging sources (e.g., video, laser scans, Computed Tomography, Magnetic Resonance Imaging).

The research will be conducted in close collaboration between the Computer Science Department, the Functional Restoration Department, and the Stanford-NASA National Biocomputation Center. A key mission of this center is to accelerate the transfer of imaging and visualization technologies to operating rooms and surgical training.